Expanding Molecular Genetics Laboratory Opportunities at Bemidji State University

This project is designed to provide necessary equipment for a coherent, focused set of molecular genetics laboratory exercises for undergraduates. In particular, the project allows students to learn about important principles and techniques in molecular biology, including nucleic acid isolation, cloning, polymerase chain reaction (PCR) amplifications, DNA sequencing, and DNA sequence analysis. The primary audience for this project is undergraduate biology majors and preservice biology/education majors. Improved laboratory capabilities are expected to enhance the department's ability to attract and retain students in molecular biology and the biological sciences.